CSR: Small: Distributed Dataflow for the Internet of Things

Using ubiquitous Internet connectivity, it is possible to monitor and control the physical environment – from urban settings to rural communities to uninhabited wild lands – continuously, using digital technologies. Critical unsolved problems in the areas of extreme weather, agriculture, medicine, energy efficiency, education, sustainability, and other high-impact disciplines can be addressed through the creation and implementation of an always-on Internet of Things (IoT) that extends human perception and the ability to act at a distance using pervasively deployed and interconnected digital assets. This project develops a new unifying computer science and engineering approach to building and deploying IoT systems. This project’s novelties are a software environment and ecosystem that are operational ready using current digital technologies. The project’s broader significance is twofold. First, the project makes publicly available a new extensible IoT software infrastructure, enabling new cross-disciplinary discoveries and advances. Second, the project makes IoT more broadly accessible by unifying the technologies that are necessary to implement it as a new software capability.

Scientifically, the project postulates a new, multi-scale set of computer science abstractions that are implementable on all devices from small-scale microcontrollers to the largest supercomputers. It does so as a full stack that can be implemented natively or as a guest of existing software infrastructure. It also includes a programming language approach that is general, highly concurrent (for efficiency) at large resource scales, and event-driven for implementation at embedded-system microscale. This combination of advances is integrable with existing development technologies and languages, thereby extending the accessibility of the research results that are required to achieve the project’s goals.